Conference: 50th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, Baltimore, Maryland; May 30 - June 2, 2006

This grant is to enable graduate students to attend the 50th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, 2006, to be held in Baltimore, MD, May 30 to June 2, 2006. In the fields of nanofabrication, microfabrication, electron and ion lithographies, x-ray and imprint lithographies, particle-beam optics, and forefront applications of nanofabrication, this conference is preeminent.

Requested travel aid will enable students to present their research to a high level international scientific community. Students will observe how scientists and engineers exchange ideas and information at conferences, and they will hear first-hand presentations of up-to-date research results in nanotechnology. They will make personal contacts and learn of employment opportunities. In a special student breakfast, conference organizers will describe to the students how the conference program is put together.